ITR: Decision Making, Optimization, Learning, and Adaptation in Uncertain and Dynamic Environments

PROJECT SUMMARY
This project deals with decision making,optimization,learning,and adaptation in uncertain
and dynamic environments.The main objectives are:
(a)To develop e .cient learning methods (either simulation-based or on-line)for construct-
ing near-optimal policies for dynamic decision making in uncertain environments.
(b)To develop new methods and to enhance the understanding of certain existing methods
for addressing large scale dynamic decision-making problems.
(c)To develop computational methods and learning algorithms that pertain to risk-sensitive
performance criteria,as well as fundamental limitations in the form of computational
complexity results.
(d)To establish the fundamental limitations of learning in multi-armed bandit problems
and Markov decision processes (MDPs),in the form of lower bounds on the amount of
learning that is required,and simultaneously derive optimal algorithms whose require-
ments match the lower bounds.
(e)To develop new formulations,models,and algorithms for multi-agent learning and
adaptation in dynamic environments.
The proposed research involves problems that are both practically relevant and intellec-
tually deep.
On the application side,the range of relevant contexts is vast.It includes logistics
(e.g.,supply chain management,inventory control,.eet assignment),manufacturing systems
(e.g.,sequencing and scheduling),communications (e.g.,frequency allocation and hando .
management in wireless systems,routing and congestion control),.nance,robotics,and
economic systems (e.g.,auctions and real-time markets).
The intellectual merit arises because some of the problems present signi .cant mathe-
matical challenges,that require new approaches as well as new problem formulations.This
project will lead to advances in the scienti .c knowledge-base and the state of the art in
the .eld of decision making.In addition,this research combines methods from operations
research and control theory (dynamic programming),applied probability (stochastic approx-
imation and large deviations),arti .cial intelligence (learning),and economics (game theory).
As such,a broader impact of this work will be the advancement of the cross-fertilization of
these disciplines.In more concrete terms,this cross-fertilization will occur not only through
publications,but also through presentations at audiences from disparate communities (e.g.,
at machine learning as well as control theory conferences),and also through the development
of new courses.Finally,at the human resource and training level,the most direct impact
will occur through the mentoring of doctoral students,who will be expected to populate
leading academic institutions.
1